Scanning Light Microscope Imaging System

Advances in video imaging technology in the medical sciences have led to the wide-spread use of computed tomography (CT) scanners, magnetic resonance (MR) imaging, ultrasound imaging, and chest radiography. However, similar broad-based progress in video imaging technology for optical microscopy has not occurred, partly because the high resolution color images of ordinary microscopes cannot be easily duplicated by ordinary video means. The objective of this research is to show the feasibility of an advanced-concept, three-color video microscope suitable for both routine analysis and research applications. Features will include real-time, three-color video images, instantaneous zoom, very low illumination power, selective contrast enhancement, and highly linear densitometry. Data resolution matches the diffraction limit of the optics over a wide range of magnification. Operation in a confocal mode will also be possible. The instrument would be valuable in many areas of medical and industrial analysis that currently use optical microscopes--including hematology, cytology, pathology, textiles, and microelectronics.